Doctoral Consortium at the 2016 IEEE Conference on Automation Science and Engineering (CASE 2016)

This proposal will support U.S. Ph.D. students working in robotics the opportunity to share their knowledge and interact with each other and more senior researchers, to learn about different sub-fields within robotics, to meet potential employers, and to become apprised of new technology that will be demonstrated by vendors. This goal will be accomplished by partially supporting the travel costs for U.S. Ph.D. students to attend the International Conference on Automation Science and Engineering, which is one of the flagship conferences of the IEEE Robotics and Automation Society. The conference attracts an international crowd that includes academics, industry workers, entrepreneurs, and funding agency leaders.